Structures Definable in O-Minimal Models

9970551
Starchenko
S. Starchenko will continue his research in the field of
model theory. He intends to study structures definable in
o-minimal models, and he will also attempt to extend some recent
results about Pfaffian functions to o-minimal expansions of real
closed fields.
One of the main goals of this research is developing a theory
of analytic functions over arbitrary algebraically closed fields
(fields in which all polynomial equations in one variable have
solutions) analogous to the theory of complex analytic functions.
S. Starchenko strongly believes that many classical theorems of
complex analysis can also be proved in the category of ``tame
analytic'' functions over such fields. Understanding which theorems
are available in this general context and which are not would shed
light on the classical theory itself; the new perspective would be
made to provide more insight into a highly developed and venerable
classical theory.
***